Electroporation-Aided Intracellular Bioproducts Release and Recovery

This small SGER proposal seeks to explore the use of electroporation to release extracellular bioproducts for recovery from bioprocessing. This is the reverse of the normal process which permits small biomolecules to be introduced into cells. Saccharomycees cerevisiae will be electrically pulsed and the amount of the enzyme, invertase, will be measured as well as the selectivity of release. The yield and ease of processing will be compared to conventional, cell disruption methods.